Conference: Frontiers of Engineering Symposia (2025 JAFOE, 2025 USFOE, 2025 EU-US FOE)

The Frontiers of Engineering (FOE) Symposia, organized by the National Academy of Engineering, provide emerging engineering leaders from academia, industry, and government laboratories the opportunity to share research insights to facilitate an interdisciplinary transfer of knowledge and research methodologies. The nature of emerging technologies and how they fit together to create products and processes that drive economic growth makes it essential that engineers understand research developments, techniques and approaches beyond their own discipline. The FOE symposia serve as a catalyst to spur engineering innovation and foster collaborative networks of researchers within the United States and between engineers from the United States and partnering countries. The FOE program has the potential to benefit society both by supporting innovation and by increasing the visibility of engineering and the important ways in which engineers serve society.

This award will provide partial support for three Frontiers of Engineering (FOE) symposia, to be held in 2025. These symposia, organized by the National Academy of Engineering (NAE) in concert with international partner organizations, are for early career researchers. The meetings to be funded by this award in 2025 are: Japan-America FOE (June, 2025; San Diego, CA); US FOE (September, 2025; Philadelphia, PA); and EU-US FOE (October, 2025; Bordeaux, France). The 2025 Japan-America FOE will focus on: Resilience in Fusion Science and Engineering, Heterogeneous Integration in Semiconductors, Clinical-Grade Wearable Sensors, Sustainable Ocean Engineering. Topics for the 2025 US FOE symposium are: Advances in Neural Engineering, Next Generation Computing/Quantum Computing, Fusion Energy, Sustainable Aerial Mobility. The topics for the EU-US FOE meeting in 2025 are: Crypto Systems and New Age of Distributed Consensus (including Security), Future Wireless Communications, Internet of Medical/Bio Things, Circular Economy of Polymers. Approximately 100 outstanding young engineers for the U.S. symposium and 30 from each country for the bilateral symposia will participate. Each 2.5 day symposium will include plenary sessions, break-out and poster sessions, and opportunities for developing collaborative research partnerships. Sessions will consist of presentations on cutting-edge research, innovations, and emerging research opportunities in engineering fields relevant to the symposium. FOE symposium papers, abstracts, presentation videos, and slides will be made available on the FOE website (www.naefrontiers.org).